SBIR Phase I: Light-Activated Sterilization of Medical Equipment and Devices

This Small Business Innovation Research (SBIR) Phase I project is to develop a point of use sterilization method for medical equipment and devices using light-activated generation of chlorine dioxide gas from a chemical coating enclosed in a plastic bag.

The commercial application of this project will be in the area of healthcare. This photosterilization plastic bag product will provide a portable, low cost sterilization device to medical care providers in hospital and field settings, such as military and emergency response units.